SCC-DG: Community-driven Circular Energy Storage: Strengthening Resilience Through Technological Charity

Electricity demand is rising rapidly across the U.S., driven by the expansion of energy-intensive facilities such as battery plants and data centers. While demand-side programs offer a flexible solution to manage peak loads, many communities are often left out due to high costs and limited access to existing energy storage systems that support participation in demand-response initiatives and reduce grid dependence during power disruptions. Our goal is to strengthen U.S. energy resilience by developing an affordable, general-purpose alternative to existing storage systems. By repurposing retired electric vehicle (EV) batteries, we aim to build community-driven, sustainable energy storage systems that provide backup power and demand flexibility where needed. Our Battery-Second-Use Community Energy Storage (B2U-CES) model is unique in that it: (1) leverages community-donated EV batteries as a circular resource, fostering a sense of ownership and shared responsibility in supporting essential community facilities; and (2) engages local stakeholders in co-designing pilot systems that combine virtual testing with real-world deployment. This project will deliver broad societal, economic, and environmental benefits by improving energy resilience, reducing battery waste, and promoting circular energy practices.

Through cross-sector collaboration and engagement with community partners, this research will develop a comprehensive, community-driven energy resilience solution that addresses the societal, technical, and economic challenges of B2U-CES. The integrative research - spanning batteries, power electronics, building systems, control strategies, decision-making, and machine learning - will advance adaptive, community-centered energy storage systems and generate key outcomes: (1) a stakeholder-informed dataset capturing the social and techno-economic challenges and drivers influencing B2U-CES adoption; (2) a high-fidelity virtual testbed for battery diagnostics, system architecture optimization, and integration with building energy systems, supported by a physics-informed, safety-aware reinforcement learning control strategy; and (3) a hierarchical market mechanism that models stakeholder decision-making to guide sustainable system planning and management. These insights will provide a robust foundation for a computational framework that enables safe, community-informed B2U-CES design and testing, laying the groundwork for future pilot implementation.